REU Site: Frontiers in Biomedical Imaging

The REU site Frontiers in Biomedical Imaging at the University of Illinois at Urbana-Champaign (UIUC) provides a state-of-the-art, interdisciplinary research environment in biomedical imaging to inspire and train undergraduates from under-represented demographics in engineering to encourage their transition to graduate degree programs. Throughout education, images are used to clearly convey complex ideas and to stimulate curiosity and interest. Likewise, investigations in the biological sciences and in medicine invariably require clear pictures of cells, tissues, and organs to discover mechanisms of life and to detect and understand the complex pathological processes of disease. Therefore, imaging is the centerpiece for this REU Site, serving as a bridge between education, engineering, the biological sciences, and medicine. Students gain an advanced skillset in state-of-the-art imaging technologies and interdisciplinary research that they can carry with them to graduate school. They are exposed to the breadth of imaging techniques and medical applications while simultaneously focusing on a specific project at the forefront of biology and medical science. This program applies literature-supported mentorship and training strategies to directly address pipeline leaks for the transition of under-represented groups to graduate degree programs in engineering or related programs. The program also provides enrichment of technical skills, professionalism, and career-readiness. The program is assessed and refined in real-time to continually improve the student experience and value.

This REU Site is dedicated to inspiring and training undergraduates in STEM fields through a summer experience in biomedical imaging research. The goal is to create a coherent interdisciplinary program centered on the visualization of biology and human tissues at all scales, and for students to develop a network of role models, mentors, and peers to support and encourage their transition to graduate school. Undergraduate sophomores and juniors in a variety of STEM disciplines will be recruited with special efforts directed toward females and under-represented minorities at minority-serving institutions and small colleges with limited research opportunities. Students begin this 10-week summer program with a 3-day "Bioimaging Bootcamp" to provide foundational knowledge in biology, imaging, and microscopy through lectures, demonstrations, lab activities, and tours, together with social introductions. Students then engage in intensive research projects in imaging and biological visualization, closely mentored by a faculty member and graduate student. All research projects, ranging from imaging single molecules using fluorescence microscopy to MRI-based imaging of the brain in living mammals, have three essential elements: (1) imaging and/or microscopy, (2) a hypothesis-driven analysis of biological samples, and (3) an analytical or computational component. Students also have unique clinical medical imaging immersion experiences, share experiences with their cohort through biweekly social activities, attend research seminars and professional development sessions, and interact with participants in other REUs on campus to expand their network. Summer achievements culminate in poster and oral presentations at a campus undergraduate research symposium that draws undergraduate researchers from throughout the Midwest, as well as the submission of an abstract to the Biomedical Engineering Society (BMES) Annual Meeting, where they reconvene in the Fall for continued education, networking, and career-enriching opportunities.